U.S.-Germany Cooperative Research in Mathematical Logic

This award supports Professor Robert Soare of the University of Chicago and three other US mathematicians to collaborate on research in the field of mathematical logic with Professor Klaus Ambos-Spies of the University of Heidelberg. Through reciprocal research visits, they are developing new insights into recursive function theory, the theory of computation, and computational complexity. Research on these topics has recently become very active in the U.S. and abroad. The increasing relation and application to theoretical computer science and computational complexity have made them even more timely. The U.S. participants in this collaboration have become some of the U.S. leaders in the field of recursive function theory. Germany, meanwhile, has had a long and distinguished tradition in the field. Klaus Ambos- Spies is currently the leading figure in Germany in recursive function theory. He has done extensive work in applications of the methods of recursive function theory to computational complexity. Further collaboration among these leading mathematicians in this increasingly important field should continue to be extremely productive.